SGER: Exploratory Research to Define Streamlining Opportunities for Construction Permitting in Disaster Recovery

This Small Grant for Exploratory Research, in part motivated by events of September 11, 2001, will undertake preliminary background study of the building code enforcement process when challenged by the need to rebuild rapidly in the face of natural or man-made disaster. The goal is to prepare for further research on improving the quality and efficiency of code enforcement services in emergency situations by gathering data and documenting system flows. The researchers will also identify opportunities to streamline the permitting and code enforcement processes while continuing to protect the interests of the community. A minimum of two municipalities will be used as case studies in accomplishing the analysis.